Science for Linguistic Inclusion

9708394 Shaw This project will help professional developers provide resources, strategies, and materials aimed at middle school teachers who teach large number of Limited English Proficient (LEP) students. The central concept is to work on a small scale with selected teachers and schools, test the feasibility and quality of the approach, and then consider expansion if the pilot warrants it.